Stationary State-Moment Method Analysis of the Quantum ThreeBody Problem (Physics)

The moment method generates converging upper and lower bounds to the discrete spectrum for a wide variety of Hamiltonians. It has been successfully applied to the Zeeman effect for superstrong magnetic fields. It is proposed to extend the method to the discrete spectrum of the 3-body problem.